The History and Dynamics of Maritime Share Contracts Among Coastal Fishermen in Zambales, Philippines

This research is a "Research Opportunity for Women / Research Planning Grant" pilot project by a young cultural anthropologist who will study maritime share contracts among fishermen in the Philippines. Two coastal villages will be selected and twenty to thirty fishermen will be interviewed in this two month project about their practice in dividing up their product in shares. Theories of share contracts developed for agricultural production will be evaluated for their relevance to fishing. This project is important because it supports the scientific research of a young woman investigator, and helps her develop her potential for doing large-scale scientific research. The topic of share contracts is an important one because many economic production regimes are organized in shares, and the economic understanding of the history and development of share contracts in specific environments will add to our general, comparative knowledge of this economic structure.